Pacific Science Congress, Global Information Infrastructure Symposium

9523561

The Consortium for International Earth Science Information Network, in
cooperation with Peking Universtiy, is sponsoring a symposium entitled
"Global Information Infrastructure: Implications for Science and
Sustainable Development" which will take place at the XVIII Pacific Science
Congress in Beijing, China, 5-12 June 1995. This award will enable an
expert from the U.S. to present in this challenging venue in China an
historical perspective on the development of the Internet in the U.S. The
presentation will be the first in a special session discussing the Internet.